CASPER: Digital Instrumentation for Radio Astronomy

The Collaboration for Astronomy Signal Processing and Electronics Research (CASPER) is an international community of astronomers, physicists, engineers, and computer scientists. The collaboration develops and maintains a collection of tools primarily used for radio astronomy research. This includes open-source hardware, software, libraries, and instrument designs. These tools can be used as templates to enable researchers to create the instruments they need to achieve their science goals in a cost effective and timely manner. CASPER hardware and software is used in over 100 instruments at astronomy observatories around the world. Instruments include everything from small experiments in undergraduate teaching labs to large, advanced telescope facilities. CASPER tools were used, for example, as part of the Event Horizon Telescope that produced the first images of the black hole at the center of our galaxy. They can also be used to drive advances in brain research, genomics, radar applications, and neutron and magnetic field imaging.

CASPER research has positively impacted the cost and time scale for development of radio astronomy signal processing instrumentation. This project will leverage the past work of the CASPER community, in tandem with current developments in the super-computing industry, to provide the infrastructure to cost effectively build the next generation of astronomical instrumentation. This includes new wide-band spectrometers and transient-detection machines, correlators for large antenna arrays, and millimeter wave cameras. The low cost-of-entry associated with building instruments with CASPER technologies has allowed many students and early career scientists to gain instrument design experience using the same equipment and tools that are deployed at observatories. The new research to be undertaken in this project will assist in instrument designs for observatories and research groups to enable spectral imaging (correlation), beamforming, RFI mitigation, pulsar searching and timing, fast radio burst searching, SETI, VLBI, and wideband high-resolution spectroscopy.